Tenth Anniversary HTS Workshop on Physics, Materials and Applications, Houston, Texas, March 12-16, 1996

9622660 Chu The Texas Center for Superconductivity at the University of Houston (TCSUH) has organized a Workshop on the Physics, Materials and Applications of High Temperature Superconductivity (HTS). The Workshop celebrating the 10th anniversary of the discovery of HTS will be held on March 12 through 16, 1996, in Houston, Texas. The present status of HTS will be reviewed, and the future of the field will be contemplated so that the HTS science can be unraveled and the technology developed. Leading scientists in the field will give plenary and review talks. Invited and contributed talks on new and major findings and poster session provide excellent training opportunity for graduate students and postdocs. % % % The Texas Center for Superconductivity at the University of Houston (TCSUH) has organized a Workshop on the Physics, Materials and Applications of High Temperature Superconductivity (HTS). The Workshop celebrating the 10th anniversary of the discovery of HTS will be held on March 12 through 16, 1996, in Houston, Texas. The present status of HTS will be reviewed, and the future of the field will be contemplated so that the HTS science can be unraveled and the technology developed. Leading scientists in the field will give plenary and review talks. Invited and contributed talks on new and major findings and poster session provide excellent training opportunity for graduate students and postdocs. ***